Evaluate Feasibility of Heuristic Control Algorithms for Factory Control of Electronics Manufacturing

This project addresses engineering research required to develop control algorithms to support modern "pull" based manufacturing planning and scheduling, and to define computer software tools required to implement these algorithms for factory management.